Integrated Studies of Star Formations

AST-0507423
INSTITUTION: University of California, Berkeley
PI: Alfred Glassgold
TITLE: Integrated Studies of Star Formation

ABSTRACT

Dr. Alfred Glassgold, at the University of California, Berkeley, will undertake a program of numerical studies of the chemical and physical conditions in the inner (< 10 AU) regions of circumstellar disks, as well as the base of protostellar outflows. The research expands and builds upon models that calculate the thermal and chemical properties for a given density structure. Dr. Glassgold will expand the models to include the abundance of ions and molecules (and their lines) for estimating the conditions of the inner disk through observations. Broader impact will result from the training of graduate students, and the incorporation of the research methodology and results in course material.